Education for Engineering Design

The object of this project is to provide self-study resources for students who perceive that their preparation for design courses is inadequate in some respects. The same resources can give information in depth to more advanced engineering students. A computer-based system that will allow students to design components, to choose methods of assembly, and to select data is to be developed. Such a system gives information presently not available in any one textbook, and could provide remedial and advanced guidance for freshmen and more advanced students. It is capable of continual updating and enhancement.